Mathematical Sciences: The Algebraic Topology of String Theories (of Physics)

Research will be carried out in the field of algebraic topology as it relates to string theories of physics, the mapping class group of a Riemann surface, and two different refinements of the Reidemeister-Franz torsion. The fusion of topology and physics represented by string theory is a particularly auspicious development.